FRP Concrete Repair Surface Preparation and Characterization

Fiber Reinforced Polymer (FRP) materials have tremendous potential for
strengthening damaged structures at low costs. Studies have shown that the
load-carrying ability of FRP materials is related to the bonding of the
epoxy to the substrate. One factor affecting the bond behavior is the
roughness of the surface.

The objectives of this project are to prepare surfaces of differing
intensities and classes of roughnesses, measure the roughness using a laser
profilometer, bond FRP sheets to the surfaces, and test the bond strengths
with a pull-off tester. Analyses will determine which type of roughness
results in the highest bond strength.